Application of In-Situ Chemical Sensors to Investigate the Thermodynamic Properties of Neutral Species (HC1?, and NaOH?) In Supercritical Aqueous Fluids

9614427 Ding This research project will utilize solid state sensors for experimental determination of thermodynamic data for neutral aqueous species. This will greatly constrain our understanding of hydrothermal/geochemical processes at supercritical conditions in the Earth's crust. Objectives of the proposed research include: (1) determination of association constants for HClo and NaOHo and (2) salting out effects on neutral ion pairs - HClo, NaOHo, and NaClo.